Decipherability of Codes and Applications

The theory of uniquely decipherable (UD) codes has been widely developed in connection with automata theory, combinatorics on words, formal languages, and monoid theory. Recently, the concepts of multiset decipherable (MSD), set decipherable (SD), and numerically decipherable (ND) codes were developed to handle some special problems in the transmission of information. Unique decipherability is a vital requirement in a wide range of coding applications where distinct sequences of code words carry different information. However, in several applications, it is necessary or desirable to communicate a description of a sequence of events where the information of interest is the set of possible events, including multiplicity, but where the order of occurrences is irrelevant. Suitable codes for these communication purposes need not possess the UD property, but the weaker MSD property. In other applications, the information of interest may be the presence or absence of possible events (or may be only the total number of events). The SD (or ND) property is adequate for such codes. This project extends the investigations carried out by several researchers on decipherability of codes. Unique decipherability, multiset decipherability, and set decipherability of codes turn out to be particular cases of a more general concept of decipherability in monoids which establishes a close connection between some classes of codes, called varieties of codes, and some classes of monoids, called codifiable varieties of monoids. This connection may allow the use of monoids to better understand decipherability of codes. Most of the procedures are based on game techniques, graph congruence techniques, categorical techniques, as well as techniques related to dominoes and to graph algorithms.